Statistical Mechanics of the Liquid State

George Stell is supported by a grant from the Theoretical and Computational Chemistry Program to continue his research in the statistical mechanics of liquids. The research is directed at trying to understand complex fluid properties in terms of the long and short range interactions between idealized particles. Variations of the Ornstein-Zernike integral equation method are used which are validated by Monte Carlo simulations. Special emphasis is placed on understanding ionic and dipolar fluids as well as fluids that are chemically associating. The role of ionic association due to strong electrostatic interactions is being studied with special focus on the effect that ion/ion pair and ion-pair/ion-pair interactions have on the thermodynamics of phase separation and on fluid structure near the critical point. This research provides an important molecular level understanding of the detailed interaction of molecular species in condensed phases. This level of understanding is important in the field of chemistry since the large majority of chemical reactions take place either in aqueous solution or in the liquid phase. A more thorough understanding of the thermodynamic and transport properties of condensed phase systems, particularly ionic and polar fluids, will aid in the design and engineering of efficient chemical engineering processes.